Triangulations of Convex Polytopes

The PI studies several problems about triangulations of (lattice)
polytopes which are motivated by connections to other fields of
mathematics:
The reconstruction problem is concerned with the relation of a
polytope and its graph, which is of interest for linear
optimization. Algebraic applications are concerned with polytopes
whose vertices have all integral coordinates. The existence
problem of unimodular triangulations and its variations has
implications to computational algebra, algebraic geometry, and
physical string theory. The methods used are mainly discrete
geometric or combinatorial, with some ideas borrowed from
topology and differential geometry.

Convex polytopes are fascinating objects that have intrigued not
only mathematicians since the ancient Greeks. The Platonic
solids --- the tetrahedron, the cube, the octahedron, the
dodecahedron, and the icosahedron --- are the most prominent and
most mystified examples. Since George Dantzig's simplex method,
linear optimization has been a driving force behind polytope
theory, and it certainly is one of the most successful
applications of mathematics to the `real world'. In the mean time,
polytope theory found many more applications within mathematics,
and beyond. Besides linear and integer programming, there are
optimization, CAD, visualization, and even theoretical physics,
just to name a few.